In Situ Ultraviolet Spectrophotometer (ISUS) for Nitrate, Nitrate, Bisulfide and Bromide Sensing in Seawater

Proposal #: 99-06983
Abstract:
The PI's propose to develop an In Situ Spectrophotometer (ISUS) system that can operate throughout the ocean on moorings and CTD type profilers. The instrument will be developed to measure the absorption of light in the ultraviolet region. In seawater, compounds of interest to oceanographers that absorb light at wavelengths less than 280 nm include nitrate, nitrite, bisulfide and bromide ions. The PI's show that measurements of these compounds can be routinely made at the levels required for most oceanographic studies without chemical manipulations. An ISUS system would be of enormous benefit for biogeochemical studies of nutrient cycling, hydrothermal systems and optical detection of the major ion bromide in areas where the conductivity-salinity relationship breaks down (e.g. in phase-separated hydrothermal fluids). This proposal is coordinated with a separate proposal to the NOAA/NURP program by H. Milburn and G. Massoth who will develop systems on the ALVIN submersible that will allow the PI's to deploy the instrument at hydrothermal vent sites.